Global Mantle Structure from Long-Period Body Waves

This research is a continuation of the use of long-period body wave data to resolve aspherical elastic and anelastic structure in the mantle. New data from the Global Digital Network will be used to update absolute and differential body-wave travel times as well as add new differential body-wave types. Attenuation parameters for the differential phases will be used to constrain 3-D attenuation structure. In the inversion for earth structure with this data, constraints will be applied from free-oscillation and stacking results generated in other studies. The 3-D structure of the mantle has broad implications on convection in the mantle and core; convection is the primary driving force for plate tectonics and distortion on the surface of the earth.